IUTAM Symposium "Fluid Mechanics of Stirring and Mixing" from August 17-19, 1990, at the University of California, San Diego

Partial support is to be provided for a symposium: "Fluid Mechanics of Stirring and Mixing," and a workshop to immediately precede the symposium: "Transport Enhancement by Chaotic Advection." The location is the University of California at San Diego, and the time is August 18 through 24, 1990 for the combined activity. A selected group of symposium participants is to address special issues in transport enhancement at the workshop. The symposium is also sponsored by the International Union of Theoretical and Applied Mechanics. Focus is to be on the possibility of designing de-stabilizing configurations and strategies for the beneficial utilization of chaotic fluid motions for enhanced transport of heat and mass, extending even to slow viscous flows.